ChemSource: An Array of Instructional Resources for the Preservice and In-Service Chemistry Teacher

The ChemSource project includes the development of an array of materials designed to assist the pre-service and inexperienced secondary school chemistry teacher to teach more effectively. The materials will be in two major forms, SourceBook and SourceView. SourceBook will be the teaching database for the high school teacher of chemistry. It will include a series of Chemistry Resources Planning Topics at its core, surrounded by general practical methodologies and collected practical information for the safe and effective teaching of chemistry. SourceView will include visualizations of methods of teaching in the context of high school chemistry classrooms with the goal of providing nearly ideal examples of chemistry lessons. The materials in both SourceBook and SourceView will be developed by a team of outstanding high school and college level chemical educators from across the United States. Printing, dissemination, and updating of the materials will be the responsibility of the American Chemical Society.